Developing a Phylogenetic Classification of the Centrotine Treehoppers (Insecta: Hemiptera: Membracidae)

DEB 9815867
Deitz
North Carolina State University

The treehopper subfamily Centrotinae is an assemblage of 1420 plant-feeding insects, currently placed among 187 genera and 19 tribes. Despite their taxonomic richness, cosmopolitan distribuiton, and occasional importance as plant pests, centrotine taxonomy is in serious disarray. Separate classifications have been developed for the Old and New World taxa, and 26 genera are unplaced at the tribal level. The objectives of this project are to establish the limits of the subfamily, determine evolutionary relationships among the tribes to provide a comprehensive, phylogenetic classification, resolve the biogeographic origins of key life history traits such as aggregation behavior and ant-mutualism, and develop taxonomic tools for identifying the tribes.